Exact and Asymptotic Solutions to Applied Stochastic Models Arising in Queueing Theory and Other Areas

The purpose of our research is to develop and apply new mathematical
methods for constructing solutions to difference, differential-difference,
integral, and integro- differential equations. These asymptotic and
singular perturbation techniques are based on the WKB method, boundary
layer analysis and matched asymptotic expansions. New nontrivial
extensions of these methods have previously been developed to solve
problems in a wide variety of applications, which led to remarkably
accurate results. We plan to continue the development of these methods,
and to apply them in particular to models arising in the performance
evaluation of queueing systems. Several aspects of the project are
directly related to problems arising in the analysis of high-speed
communication systems. We also propose to study problems in mathematical
physics, related to diffusion-convection, bifurcation, and tunneling
through potential barriers.

An important aspect of our research program is the study of queues or
lines. In its simplest form, a queueing system consists of a server and a
queue or waiting room. Customers arrive, possibly at random times, and
request service of random length from the server. If the system is empty,
an arriving customer is sent directly to the server. Otherwise, the
customer is relegated to wait in the queue. One is interested in
developing mathematical models of the queueing system and computing
performance measures, such as the average number of customers waiting, the
average waiting time, the utilization, etc., to help understand the
behavior of the system. For complicated queueing systems, the performance
measures are difficult to compute and a major goal of our research is to
construct useful approximations to them. The main application of our work
in queueing is to high-speed communication networks such as the Internet.
Here the customers are packets of information (bits), such as data files,
voice messages, or video. The server is hardware such as a router or
switch, which transmits the packets along the Internet. At each switch,
the packets are stored in a queue, if needed, before transmission. These
buffers can only a fixed number of packets. Arrivals finding a full
buffer are lost and hence the system performance is degraded. The
performance measures, average buffer size, average packet delays, and the
probability of losing information, is important in the design and tuning
of high-speed communication networks. Our research provides network
designers with mathematical tools for approximating these performance
measures.